Quantum Revolution: Dialogues and Rhetoric

The new quantum mechanics, discovered, elaborated and interpreted during the years 1925-28, radically transformed science and philosophy of the 20th century. Dr. Beller is continuing her study of the intellectual and psycho-social history of the quantum revolution. This project covers two periods in the development of new quantum physics and its philosophy: the formative stage (1925 -28), which Dr. Beller is describing in terms of a network of dialogues; and the consolidation stage (after 1928), which she is studying by focusing on the rhetorical aspect of the articulation of the new quantum philosophy. Dr. Beller has already studied many of the primary and secondary sources in the history of quantum physics and has published a series of papers on this topic. Under a previous grant, she devoted the academic year 1990-91 to this project. Under this grant, she is continuing her study of the sources pertaining to the consolidation stage of this research. Her results will be of great interest for both history and philosophy of science.